Upper Arctic Ocean Variability

ABSTRACT OPP-9728835 BOYD, TIMOTHY OREGON STATE UNIVERSITY The project will utilize a U.S. Navy submarine to conduct a study of the temperature and salinity structure of the upper 1000m at sites in the Arctic Ocean where significant changes in ocean circulation have been observed this decade. The boundary between warm/salty Atlantic currents and cold/fresh Pacific water has moved significantly farther north than observed prior to the 1990s. The displacement of cold Pacific water by the warm Atlantic water could lead to greater melting of the Arctic ice pack if the intervening layer below the ice pack shrinks and warms due to a further vertical extension of the warm Atlantic water. This study will be one component of a multi-year study involving the dual use of Navy submarines to examine the changing temperature structure of the Arctic Ocean. The study will provide a basis for an examination of the role of global change on the Arctic Ocean.